Exploiting Structured Computations

Graph traversal is a fundamental computational problem, not only because it is the natural abstraction of many search problems, but also because its complexity is at the root of important relationships among deterministic, nondeterministic, and probabilistic computations. Significant progress has been made during the last two years toward understanding the complexity of graph traversal. Viewing the problem in its natural structured setting was crucial to most or all of these advances. This project is following a number of approaches to investigate the time and space complexity of graph traversal in structured settings. The goal is to obtain stronger results in the previously studied structured settings, and novel results in substantially richer structured settings. Similarly, structured views of important algebraic problems such as matrix multiplication have been instrumental in advances toward understanding those problems. The project is also investigating the communication and space complexity of these problems, motivated by the importance of communication in parallel and distributed computation.